Petrogenesis of Triassic Intrusions, SW Maine: Forerunners of WMMS Igneous Activity

Anorogeneic igneous activity during the Mesozoic in New England was a long-lived and petrologically varied magmatic event. Three major pulses of magmatism are recognized: (1) an early Triassic phase, (2) a spatially restricted and voluminous Jurassic pulse, and (3) a regionally extensive Cretaceous phase. Modern petrologic investigations have concentrated on two later phases; petrogenetic conclusions vary from simple crustal anatexis to combined crustal assimilation and fractional crystallization (AFC) of mafic, mantle-derived magmas. In contrast, the earliest phase of activity, the Triassic event, has been petrochemically ignored. Exposed only in SW Maine, this activity is primarily represented by the Mt. Agamenticus complex (alkaline syenite to granite) and the Abbott Mountain stock (syenite). Using modern petrochemical techniques and geochronology (phase petrology, major, trace, and rare earth element geochemistry, Sr, Pb, and Nd isotope geochemistry, and 40Ar/39Ar isotope geochronology) the proposed research will carefully characterize these intrusions and develop comprehensive petrogenetic solutions. Preliminary results suggest that crustal anatexis and not AFC of mafic magmas is important in the genesis of these plutons. If so, then this Triassic magmatic event may be similar to the later Jurassic pulse and can be considered the forerunner of that activity. Comparison of petrogenetic models developed for all of the Mesozoic igneous events should increase our understanding of the evolution of this 'anorogenic' magmatism and provide better constraints on the nature of the tectono/thermal activity that was is ultimate cause.